NevadaNet: Phase II

This award funds a line connecting NevadaNet to NSFNET, and supports establishing a position for conducting networking outreach activities in Nevada. The person will conduct orientation and training for existing and potential users of NevadaNet, the NSFNET and the Internet.***